COLLABORATIVE RESEARCH: Multiphase Interfacial Hydrodynamics

DMS-0509665, Shen, Purdue University (Collaborative 0509094 Liu, 0509594 Lopez)

Collaborative research: Multiphase interfacial hydrodynamics

Abstract.

The aim of this proposal is to address, from the perspectives of
modeling, simulation and experimentation, the critical issues related
to the couplings between the bulk and interfacial flows, between the
macroscale and the mesoscale dynamics, and between the inertial,
viscous and surface rheological time-scales. These are essential for
the development of designer surfactants: monolayer-forming materials
for specified functions. It is expected that this project will
provide (i) a general variational framework for the modeling of
interfacial flows as well as for the coupling of mesoscale monolayer
dynamics to the macroscale bulk flow; (ii) a robust and reliable
numerical scheme for simulating the proposed multiscale model. The
combined efforts of mathematical analysis, computer simulations and
experimental measurements will significantly advance our knowledge on
the multiscale interfacial dynamics associated to the monolayer
forming surfactants.

Monolayer-forming surfactants are routinely applied in traditional
technologies such as material and food processing, in liquid jets and
atomization systems, as well as in emerging technologies such as
lab-on-a-chip for parallel, low-cost DNA sequencing. These industries
have a major economic impact. An example of surfactants playing a
crucial role in biological systems is lung surfactants, without which
respiration is impossible. In particular, recent developments in
surfactant replacement therapy, used on premature infants, is a great
success story where significant decreases in infant mortality are
directly attributable to the surfactant therapy. Hence, a thorough
understanding of the intrinsic physical processes associated with the
multiscale interfacial monolayer hydrodynamics is of critical
importance for the Nation's economic growth and well-being.